Fluid-Structure Analysis of Very Large Floating Structures

This program involves the theoretical and experimental fluid-structure analysis of very large floating structures (VLFSs). The primary objective of the program is to improve the understanding of VLFS response and the capabilities to predictit. A major aspect of the work involves wave tank model testing of six scale model VLFSs. Data obtained from these tests will include not only basic motion response, but a detailed description of the hydroelastic response. The data will be use to validate numerical techniques and to identify and evaluate phenomena not included in the numerical models. New and existing numerical techniques to predict the hydroelastic response will be developed and refined, with an emphasis placed on methodologies appropriate for large scale, flexible, floating systems. The experimental data and numerical models will be used to evaluate various configurations and to develop general guidelines for design. A VLFS might have plan dimensions on the order of 1,000x 3,000 m, which is a substantial increase in size compared to existing floaters. Because comparable field data and experience is nonexistent, this research is required for the better understanding of the hydroelastic response of VLFSs. It must be carried out prior to the design and construction of a VLFS.